Fundamental Experiments in Quantum Physics

The Physics Department at Mount Holyoke is expanding and upgrading experiments for two upper-level physics courses and one advanced laboratory course, with emphasis on the dramatic effects of fundamental quantum mechanics. The new experiments are: The Mossbauer Effect and Angular Polarization Correlation of Two Photon Annihilation Radiation (the Einstein, Podolsky Rosen paradox). The experiments being upgraded are: Double Slit Photon Interference and Accelerator-Based Rutherford Scattering. These experiments blend well with existing instrumentation and faculty expertise in the department, and with the modern physics course structure. With these experiments students have opportunities to experimentally investigate and become intrigued by some of the most fundamental and counter-intuitive aspects of quantum theory.The major pieces of equipment provided by the grant that are needed to carry out these upgrades include: 1) a high vacuum turbo pumping system and a PC-based multichannel analyzer, both of which find many other uses within the Physics Department; 2) two radioactive sources Na-22 and Co-58; and 3) some NIM electronics, the remainder to be supplied by the department. The turbo pump is being used to improve the Rutherford Scattering experiment. The data analysis capability of the PC is being used in the Mossbauer experiment and in the double slit photon interference experiment.